Science in Alaska: Using Multimedia to Support Science Education

The proposed project, which will build upon a successful NSF EAGER grant, will help arctic researchers explain the significance of their research widely to the general public—which, in today’s technologically connected world means not only in the U.S., but worldwide- and to reflect the diversity of the scientific enterprise Alaska. As proposed, the current Frontier Scientist’s schedule of science reporting will be enhanced by a broadcast TV series titled Frontier Scientists to engage a larger viewing audience. A “Do It Yourself” (DIY) component will help scientists to create their, professional-caliber media that will sustain the publics’ interest and feedback in their research. An evaluation regime will insure appropriate quality and depth of communication, throughout the lifecycle of each science story.